The Hampshire College Summer Studies in Mathematics

9452685 Kelly Hampshire College seeks to initiate a summer residential Young Scholars program for 60 students during a six week session. The program is called Hampshire College Summer Studies in Mathematics. The faculty of college professors, mathematics majors and graduate students live in the program dormitory and join students for meals and recreational activities as well as for more than 8 hours of mathematics each day. Small and lively classes and 3 hour evening problem seminars of 15 students guided by a professor and two assistants, will collaboratively investigate challenging and rewarding problems from number theory, group theory, combinatorics, probability, the fourth dimension, graph theory, infinity, fractals, chaos, and other active branches of mathematics. Emphasis will be placed on the processes of mathematical thought, discovering patterns, formulating questions and definitions, making conjectures, and creating proofs, rather than the simple accumulation of results. Activities include classes for four hours each morning, evening problem seminars, daily Prime Time Theorems, visits by pure and applied mathematicians, a weekly program journal, computers, math films, and field trips. Regular contacts will seek to engage alums and their teachers with serious mathematics and to maintain the spirit of the Summer Studies intellectual community. ***